RCMS: Tuskegee University Enhancement Program for ChemistryMajors.

The Tuskegee University Department of Chemistry proposes to establish a Research Careers for Minority Scholars (RCMS) Program. Designed to enhance and strengthen the chemistry program while facilitating the recruitment and retention of students, the proposed three-year program includes many facets, the goal of which is to increase the number of minority students who complete B. S. degrees in chemistry and choose chemistry careers. Program participants will represent various sectors of the campus and community which play major roles in the development of chemistry careers. All faculty members of the Chemistry Department will be involved in the program. Chemistry majors at the graduate and undergraduate levels will participate as "Big Sisters and Big Brothers" and as tutors for students chose to be RCMS participants. However, some tutors will be from other scientific disciplines. Faculty members in the Counseling Program will provide counseling services to the students. Parents and guardians will participate through their involvement in selected workshops, conferences, and interactions with students and faculty members. Chemistry Department alumni will provide input through serving as lecturers at selected seminars and as resource persons. High school personnel and persons from other colleges and universities will provide valuable information through their recommendations and suggestions about students. Partners (e.g., national research centers, private sector firms, universities) will facilitate the completion of objectives through their services as sites for research experiences for students, sources of lecturers and other experts who will provide needed information, resources, and services in enhancing and strengthening the chemistry program. As a result of this program, a stronger program of academic advising and support services will be provided along with career motivation and enrichment. A more concerted effort will be made to provide students with the tools and encouragement needed to succeed in chemistry careers. Students will develop their research skills through the faculty mentoring relationship. The results of their work will be presented at national conferences and published, when appropriate, in scientific journals. Junior and senior students will be provided opportunities to conduct research at non-campus research centers. Ultimately, the entire Chemistry Department will be strengthened and revitalized. Tuskegee University's position will be fortified in terms of recruiting and retaining students in chemistry. This program, although small, will aid in the provision of adequate numbers of well qualified students to help offset the Nation's shortage of scientists.